A Multiprocessor Laboratory

A new Laboratory is being created to enable the Computer Science Department to offer its majors experience in the design and implementation of parallel computing systems. The students work with three types of parallel systems: extensively pipelined uniprocessors with multiple execution units, multiprocessors using shared memory, and message passing multiprocessor systems. The new course completes a sequence of three courses; the other two courses are a lecture course in computer architecture, and a laboratory course in microcomputer systems design. In the new laboratory each group of two students works with an Intel 386 based IBM AT clone equipped with a CSA Transputer board, a Microway i860 board, and a logic analyzer board. The ATs are networked to a laboratory file and print server, and furnish I/0 facilities to the installed boards. The Intel i860 provides the vehicle for investigating parallel uniprocessors. The Transputer board introduces students to message passing multiprocessor systems. A 16 node reconfigurable Transputer system, hosted by a separate AT, permits the students to implement on a real multiprocessor the software that they have developed, and enables them to investigate the link operation and link driver/receiver design. Microway's 860 boards are each equipped with two links which will enable the student to develop an asymmetric multiprocessing system with the Transputer. Shared memory multiprocessors are made up of existing multiple Intel 8086 boards housed in a Multibus equipped card cage.